Combinatorics of simplicial complexes and set theory, dynamics of large groups, and Scott analysis of definable equivalence relations

The project will establish results connecting diverse mathematical phenomena through developing new mathematical methods. One element of the project is an investigation of multidimensional geometric bodies through finite configurations and a derivation of results about the original bodies through a limiting process. Grouping, using similarity relations, of objects of a given type is a widespread mathematical practice. The project will analyze the similarity relations in a very broad context through a general Scott procedure. It will also study a specific such similarity relation coming from logic. Furthermore, the project will study motions preserving symmetries and their actions. It will also have an educational aspect by helping a number of PhD students acquire skills that can be utilized both in and outside of academia.

The project will explore interactions of various areas of mathematics: Logic, Dynamics, Topology, and Combinatorics. The first part of the project will give a combinatorial and set-theoretic analysis of simplicial complexes and simplicial maps. This part connects with Ramsey theory and dynamics of Polish groups. Further, the project will investigate a unified approach to several transfinite approximation processes for definable equivalence relations. This part presents a general Scott analysis connecting with model theory and descriptive set theoretic dynamics. The next part of the project is devoted to topological dynamics. This part will investigate extreme amenability and its underlying phenomena coming from probability theory and geometry as they occur among topological groups and submeasures. Finally, Lascar strong types from model theory will be studied using descriptive set theoretic tools.